RUI: Problems in Varieties of Commuting Matrices, Jet Schemes, and Division Algebras

This project deals with two broad classes of problems. The first
concerns varieties of commuting matrices and jet schemes, and arises
from algebro-geometric interpretations of an open problem in
commuting matrices. The other concerns division algebras, and
arises from the classical question of crossed products, and as well,
from recently discovered applications of division algebras to coding
theory.
In the first class of problems, the PI, Sethuraman, wishes to study
various varieties defined by the condition that certain matrices
commute, such as varieties of commuting pairs, of commuting triples,
and of commuting pairs in the centralizers of fixed matrices. The
idea is to gain insight into three generated commutative matrix
algebras. Jet schemes of commuting pairs of matrices arise naturally
in these considerations, as do jet schemes of determinantal
varieties. In the second class of problems, Sethuraman wishes to
study certain generically defined symbol division algebras of prime
exponent and index various powers of the prime to determine if these
are crossed products. The generic nature of the symbol algebra
makes this a significant object to study. In a different direction,
Sethuraman wishes to continue to study applications of division
algebras to wireless communication, including determining large
subgroups of units in orders in division algebras, and the
construction of orthogonal lattices inside number fields for
appropriate trace forms.

The problems considered in this proposal arise from algebra and
algebraic geometry. There are two kinds of problems studied here:
one where the motivation comes from within mathematics, and the
other where, very significantly, the motivation comes from
wireless communication. The PI has had a successful collaboration
with engineers where he was able to utilize certain abstractly
defined mathematical objects (``division algebras'') to solve a very
practical telecommunications problem. The synergy appeared most
unexpectedly, and has led to a very fruitful body of results in the
field. In addition to this work with engineers, it is to be noted
that the PI teaches in a primarily undergraduate institution, with a
large immigrant population, where he has guided several
undergraduate and masters level students on research projects in
mathematics. Some of these students will go on to be school
teachers. He proposes to continue working with students on research
projects.